Concrete Plank Diaphragm Characteristics

Masonry construction comprises a large portion of building construction in the U.S. and the world. Reinforced masonry construction use is increasing in moderate to higher seismic zones because of its apparent features of economy, fire safety, architectural flexibility, and ease of construction. The present state of masonry structural analysis and design and materials and construction technologies does not enable an accurate prediction of building behavior under lateral loads such as seismic loads. This research project is an experimental and analytical investigation of the seismic response of concrete plank diaphragms. Many masonry buildings are constructed with floor slab systems consisting of concrete planks. The first of two tasks will be full-scale experimental tests of concrete diaphragm slabs. The second task will integrate existing diaphragm data with the experimental test data to determine the behavioral and strength characteristics.